Intercomparison of Techniques for the Measurement of Air-Sea Gas Flux

This project will intercompare three techniques that focus on air-sea gas exchange of dimethyl sulfide (DMS) to help evaluate the utility and accuracy of flux measurements in the field. Accurate measurements of DMS flux are important in estimating the oceanic source of reduced sulfur to the atmosphere and calculating the uptake of CO2 by the oceans. This research is important for climate change research since DMS can lead to sulfate aerosols that in turn can lead to cloud formation. The P.I. will use a gradient flux in-situ method to measure DMS flux and compare their results with several eddy correlation methods being used by other researchers from a highly instrumented platform in the North Sea off the Netherlands.